Classical and Quantum Mechanical Investigations of Stochastic Perturbations

The subject of this work is the dynamics of simple atomic systems subject to strong time-dependent perturbations, as in the classical quantum correspondence of highly excited atomic systems and in the interplay between strong external perturbations and internal electron-electron correlations. Projects are (1) the evolution of highly excited Rydberg atoms under the influence of ultrashort high intensity electric field pulses and (2) electron correlation and two-electron processes in quantum dots driven by terahertz pulses